Characterization of the Human Phospholipase D Gene

9405572 Agwu The phosphatidylcholine (PC)-hydrolyzing phospholipase D (PC-PLD) generates a bioactive intermediate, phosphatidic acid (PA), in stimulated cells. PA is subsequently dephosphorylated to 1,2- diradylglycerols (DG), the endogenous activator of protein kinase C (PKC), by PA phosphohydrolase (PAP). Despite extensive research which indicates that PC-PLD plays a critical role in cellular signal transmission and responses, the biochemical mechanisms involved are not clearly understood. A central problem is the fact that the human PC-PLD enzyme has not been purified despite on-going efforts by many researchers. This laboratory has developed PC-PLD polyclonal antibodies (PC_PLD Abs) based on the hypothesis that cognate antigenic determinants in mammalian PC-PLD protein may exist in conserved domains of the enzyme and, therefore, will cross-react with antibodies developed against purified plant and bacterial PC-PLD protein used as immunogens. PC-PLD Abs have been used to screen a mammalian, human polymorphonuclear leucocyte (PMN) library and PC-PLD cDNAs have been cloned. The first goal of this project is to characterize the PC-PLD cDNAs by determining their nucleotide sequence and deducing the amino acid sequence of the PC- PLD enzyme. These data will make possible the development of antipeptide antibodies and oligonucleotide probes for studying the PC-PLD in many cell types. In addition, the PC-PLD gene will be overexpressed in E. coli and mammalian cells, and the expressed PC- Pld enzyme will be purified and characterized biochemically. By expressing the PC-PLD enzyme in appropriate hosts, it should be possible to study the regulatory and modulatory mechanisms involved in PC-PLD activation and investigate its role in cellular responses. If successful, these studies should generate seminal results on PC-PLD cDNA nucleotide sequence and make available antibodies to the purified PC-PLD enzyme. %%% Extensive research indicates that an enzyme know n as phosphatidylcholine (PC)-hydrolyzing phospholipase D plays a critical role in cellular signal transmission and responses to a variety of physiological stimuli, but the biochemical mechanisms involved are not clearly understood. A central problem is the fact that this enzyme has not been purified despite on-going efforts by many researchers. The goal of this research is to clone the gene for this enzyme and express the gene in cultured cells to obtain sufficient quantities of the enzyme to characterize it biochemically. If successful, this project will provide a basic understanding of the enzyme at the molecular level and provide the basis for further research to clarify its role in cellular signal transduction. ***